Planning Grant for Development of a New Division in HSMRC

ABSTRACT EEC-9529533 Henderson-Kinney There is a great need for field instrumentation that can address complex questions associated with the characterization and monitoring of hazardous waste sites. Research at Tufts University is addressing many of these needs. This is a planning grant to determine if Tufts University can obtain sufficient industrial support to become a research site of the New Jersey Institute of Technology's Industry/University Cooperative Research Center (I/UCRC) for Hazardous Waste Management. Tufts University proposes to plan to become the sixth research site of the Center, the first outside of New Jersey. Tufts University proposes to expand the multi-university Center's research agenda by addressing a Field Electrochemical and Microelectronic Program, A Fiber Optic Chemical Sensor Program, In Situ and On-site Characterization and Monitoring of Subsurface Contamination Program and a Field Characterization Program. The researchers are recognized experts in their fields and can manage the activities of this planning grant.